NSF Young Investigator

9357190 Kasevich This NYI award will support the research of a promising and accomplished young investigator. His research will include experimental studies of quantum many-body effects in weakly interacting atomic systems. This will include non- classical correlations between pairs of atoms and Bose- Einstein condensation. ***